Multi-Scale Modeling and Simulation in Materials Science

The 2007 Barrett Memorial Lectures: Multiscale
Modeling and Simulation in Materials Science will
bring together ten distinguished speakers, three of
whom will give a series of three lectures on some
aspect of the conference theme. The aim of the
conference is to explore modeling and simulation of
materials over a range of length scales from atomistic
to continuum, as well as methods that seek to
combine techniques that normally apply on different length
scales. Topics are to include: the quasicontinuum method,
the heterogeneous multiscale method and heteroepitaxial
growth. In addition, there will be an opportunity for junior
researchers to present their work in poster format.
The requested funds are to support the travel of these
junior participants.

The 2007 Barrett Memorial Lectures: Multiscale
Modeling and Simulation in Materials Science will
bring together ten distinguished speakers, three of
whom will give a series of three lectures on some
aspect of the conference theme. The aim of the
conference is to explore modeling and simulation of
materials over a large range of length scales, including
the nanoscale, as well as methods that seek to
combine techniques that normally apply on different length
scales. The meeting will be highly interdisciplinary
in nature, drawing an audience from universities in
the Southeast as well as Oak Ridge National Laboratory.
In addition, there will be an opportunity for junior
researchers to present their work in poster format.
The requested funds are to support the travel of these
junior participants.